Enhancement of Research Facilities at the Kansas Ecological Reserves

The Kansas Ecolgical Reserves (KER) includes a wide variety of managed natural and experimental areas in the tallgrass prairie-eastern deciduous forest ecotone. Recently ecological research at KER has grown to include a diverse assemblage of individual and collaborative research efforts with a trend toward developing long-term projects and experimentally manipulated ecosystems, both terrestrial and aquatic. Development was assisted by funds from institutional, private, and federal sources. This project will enhance research facilities in three ways: (1) to install a surveyed field grid for georeferencing study sites and field research facilities throughout KER, (2) to expand the database management system and GIS by adding key equipment, such as a UNIX workstation, software, etc., and by establishing a set of core map coverages, and (3) construction of a lath house that will be used for plant population and aquatic studies. The enhancement will supportvongoing research programs, make the field station more attractive for outside investigators, and foster research aimed at larger spatial and temporal scales.